Acquisition of a High Performance Sorting Flow Cytometer for Oceanographic and Marine Ecological Research

0215817
Landry
This Major Research Instrumentation award to University of Hawaii at Manoa supports the acquisition of a high-performance, multi-laser sorting flow cytometer to continue an active program of plankton community research in open-ocean ecosystems, as well as providing a shared-use facility for other research in marine biology, microbial ecology, cell regulation and culture of aquatic organisms. It will replace a heavily-used, but aging, flow cytometer that has been operated as a shared-use facility since 1991. The new instrument will provide important new capabilities, and will be particularly well suited for study of extremely small "picoplankton" such as the photosynthetic bacterium Prochlorococcus, that are important marine primary producers, but are very difficult to study with other techniques.
***